Industry/University Cooperative Research Center for Power System Engineering Research Center (PSerc)

EEC-0002918
Shoureshi

The goal of the Pserc Center at the Colorado School of Mines will be to integrate advances from power systems, control theory, artificial intelligence, diagnostics, new sensor-technologies, etc. to assist the electric utility industry in facing these new challenges.

The research, which is complementary to those of the other Pserc sites, will focus on the following topics:

Development of Intelligent Substation; Advanced Power Generation Control with Integrated Economics, Variable Demands and Short-Term Load Forecast; Development of Advanced Sensors and Sensory Feedback Systems for Increased Reliability and Lower Maintenance Cost; Predictive Maintenance for Reduction of Operating Cost; Development of Remote Health Assessment Techniques T&D; and EMAT Based Diagnostics of Overhead Transmission Lines.